Third United States/Japan Workshop on Urban Earthquake Hazard Reduction

The Earthquake Engineering Research Institute (EERI) Committee on Urban Earthquake Hazard Reduction will convene a cooperative United States--Japan workshop to present current research findings and lessons learned from recent damaging earthquakes, and resultant changes in mitigation, preparedness, response, and reconstruction practice. This workshop will be held in Hawaii, November 13- 15, 1991. As the International Decade for Natural Disaster Reduction begins, this workshop will provide an opportunity for the U.S. and Japan to build on earlier collaborative research efforts and to strengthen existing ties. It will provide a basis for future program planning for earthquake hazard reduction research.